The Completion of a Microcomputer Network

This project will establish a campus microcomputer network for students and teachers to access computing resources and software at Stetson University. The network will be linked with national networks. A modern teaching environment adapting the latest software for students and teachers will be established to explore ways of learning and applying mathematics. The curriculum of calculus, linear algebra, differential equations, and chaotic dynamical systems will be enhanced by this network. There will be an internal and external evaluation of the effectiveness of the network and curriculum impact. The grantee is providing an equal sum for the equipment obtained from non-Federal sources.